GPU-enabled General Relativistic Simulations of Jetted Tidal Disruptions of Stars by Supermassive Black Holes

Tidal disruption events (TDEs), which occur when a star is destroyed by the gravitational
field of a supermassive black hole, are unique probes into the properties of otherwise-quiescent
supermassive black holes (SMBHs). About 30 of them have been observed so far and this number
is steadily increasing, aided with surveys and new instruments coming online. Despite this
wealth of observational knowledge, our understanding of the TDE physics, which will ultimately
allow us to interpret those observations, remains rudimentary at best. In particular, we still
do not understand what causes the debris to lose its energy and angular momentum, fall into
the black hole and radiate. This project will make use of the fact that, at their core,
TDEs are ultimately well-described by the general relativistic magnetohydrodynamics (GRMHD)
equations of motion. By carrying out direct GRMHD simulations of TDEs, the project hopes to obtain a first-principles
understanding of TDE physics.

The proposed simulations will provide answers to several long-standing
questions in the TDE community: How does the debris circularize, dissipate energy, and accrete
onto the SMBH? What fraction of stellar gas forms the disk, what fraction is ejected as an
outflow, and how do these fractions depend on the black hole mass, spin, and the inclination
of the stellar orbit? Do eccentric accretion disks form and how does angular momentum transport
work in such disks? If such an eccentric disk is tilted, as is naturally expected in TDEs,
does it undergo general relativistic precession? Do such disks produce relativistic jets and
how? Understanding these issues will allow the community to make meaningful, quantitative
interpretation of TDE observations.

Even though the project is focused on TDEs, it elucidates the basic
physics of tilted accretion disks and their jets that is applicable to a range of sources
including quasars, black hole binaries, and ultra-luminous X-ray sources.
Additionally, the proposed simulations will study, from first principles
and for the first time, the development of magnetorotational instability in eccentric tilted
accretion disks and the long-term evolution and GR precession of such disks under continuous
feeding by the debris stream.

Moreover, stars shredded by black holes and producing relativistic jets offer some
of the most fascinating manifestations of general relativity. The project will disseminate the
results obtained as part of this proposal in public talks, summer schools, radio station and
newspaper interviews, and press releases. Finally, the project will involve undergraduate students in data
analysis and visualization, and they will gain experience in working with Big Data, black
hole accretion and jet physics, presenting their results at conferences, and publishing their
work in peer-reviewed journals.